Engineering Creativity Award: Magnetic Field Desalination

This research project is concerned with the desalination of seawater on an industrial scale at low operating costs compared to conventional methods. Methodology involves the fields of nuclear power, superconductivity, and reverse osmosis, Superconductors have the capability to generate extremely high magnetic fields at low cost. The principles of nuclear reactors are used to trap ions in a magnetic field away from the containing walls allowing the water to be desalinated to run directly through the center of the magnetic field. After the seawater passes through the magnetic field the impurities are reduced by approximately one order of magnitude. A modified reverse osmosis unit which operates on the centrifuge principle generates high pressure to desalt seawater form brackish water to drinking water. The separation phase provided by the high magnetic field brings the water to brackish water standards and reduces the high osmotic pressure barrier that needs to be overcome to desalinate seawater by reverse osmosis. All of the various aspects resulting from the above concepts will be studied and a system will be suggested which will make possible a desalinization process that is efficient and inexpensive.